I-Corps: Translation potential of a cognitive artificial intelligence (AI) method that estimates and mitigates recall risk of phishing threats

This I-Corps project is based on the development of technology to reduce human vulnerability to phishing attacks. Social engineering attacks, including phishing and spear phishing, are significant cybersecurity risks facing enterprises, yet effective technological solutions for addressing the underlying human risk are lacking. Although organizations invest heavily in annual security awareness training, phishing simulations, and dedicated personnel to enhance awareness, current approaches do not adequately address the risk of recall failure. This technology helps employees to improve recall, and recognize and report phishing threats, which may reduce organizational vulnerability and improve their ability to recognize scams outside the workplace. This may enable organizations to more accurately measure human cybersecurity risk, deliver effective and personalized training, and reduce the financial costs, operational disruptions, and societal harms caused by phishing and other social engineering attacks.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a model that estimates an individual’s risk of forgetting different types of phishing threats and delivers personalized training interventions to strengthen long-term recall and improve detection and reporting of phishing attacks. This technology uses control-theoretic methods, together with cognitive models, to generate an optimized sequence of periodic training interventions designed to reduce recall risk. It operates as a closed-loop system in which employee engagement data, prior training data, and, when available, phishing-simulation results are continuously collected and analyzed to adapt subsequent interventions. The result is a personalized, continuously adapting training mechanism intended to strengthen long-term recall of social engineering threat patterns so employees can recognize and report attacks when they receive them. Existing solutions primarily build basic knowledge, assess risk intermittently, and support compliance. However, employees often fail to retrieve relevant threat patterns from memory when confronting real attacks. This technology may provide a more effective way to estimate an individual employee’s risk of recall failure and mitigate that risk through personalized interventions that strengthen the long-term ability to recognize and report phishing attacks.